Industrial University Cooperation Project: Analysis of Turbulent Liquid Dispersions with Mass Transfer

This research project will develop and verify models for two-phase flow in turbulently agitated liquid-liquid dispersions. The results will have direct utility for scale-up of interphase transport processes occurring in these systems. The proposed model incorporates dispersed phase micromixing due to coalescence and breakage of droplets. The turbulent momentum and energy balance equations for the continuous phase are coupled to the dispersed phase through the friction term. Simultaneous solution of the drop population balance equation permits calculation of the local drop size distribution, dispersed-phase micromixing, and the frictional losses of the continuous phase for a distributed system. The hydrodynamic and dispersed phase models are coupled to the conservation equation to model interphase transport. Experiments are conducted for physically equilibrated liquid-liquid dispersions in vessels over two orders of magnitude to measure spatially dependent drop size data for comparison with model prediction. Measurements of mean flow and turbulence are made for comparisons with and verification of the turbulence transport model.